Construction of an Undulator Beamline Using a Normal Incidence Monochromator for Ultra-High Resolution Photoemission and Other Studies at NSF's Synchrotron Radiation Center

9503883 Campuzano The technique of Angle-Resolved Photoemission (ARPES) is currently the only method of determining the energy - momentum relationship of electrons in materials, that is, the complete electronic structure of materials. Recently, we have dramatically improved the technique of ARPES from its previous typical resolution of ~30 meV to 8 meV. This improvement opens up new possibilities in understanding new materials, particularly the man-made ones with large unit cells. This is because in materials with large unit cells the eclectron states are closely spaced in energy, requiring extreme resolution. Examples of what we propose to study are the high temperature and organic superconductors, quantum confinement in metallic, magnetic, and semiconducting multilayers, etc. Although we have made great strides in improving the energy resolution, the same cannot be said about momentum resolution. The new man- made large unit cell materials have very small Brillouin zones. This problem is fortunately only geometrical in nature: the momentum resolution can be improved by simply restricting the acceptance angle of the electron analyzer. However, since the counting rate decreases as the square of that aperture, higher photon beam flux is required. %%% With this award we will construct an undulator-based beamline with a high throughput-high resolution normal incidence monochromator at the University of Wisconsin-Madison's Synchrotron Radiation Center;s Guest Investigator Program. The instrument will not only open new possibilities in the study of electronic structure, but will also relieve the heavy burden placed on the existing 4m NIM beamline at SRC. ***